US-Argentina-Brazil 2000 Workshop on Programming Methodology

\0001334
Shankar

This U.S.-Argentina proposal will give support to Dr. Natarajan Shankar of SRI International for the organization of a workshop on Programming Methodology, to be held in conjunction with the 29th Argentine Meeting on Computer Science and Operational Research, to be held in Argentina. The co-organizers are Professor Armando Haeberer of Pontifical Catholic University of Brazil, Professor Gabriel Baum of the University of La Plata, Argentina and Professor Rafael Lins of the Federal University of Recife, Brazil.
Following the two-day workshop, there will be an eight-day school directed at young researchers in Argentina and Brazil. The Argentine Society for Informatics and Operations Research is sponsoring these events. The subject of the workshop and school is Program Design Using Logic. It will cover the spectrum of programming methodology including a basic background in calculational logic, requirements modeling, refinement calculi, and logics for imperative programs. Correct computer programming is critical to ensure that computer software is reliable. This impacts every aspect of daily life, including commerce, communications, power and transportation.

A strong U.S. presence at this workshop will help create strong ties and promote lasting collaborations with researchers in South America.